Stratifications, Ends, and Controlled Topology

The project concerns the topology and geometry of manifolds, stratified
spaces, infinite trees, and ultrametric spaces. The main tools are
controlled topology, surgery theory, noncommutative geometry, and
C*-algebras of groupoids. The main focus is on the geometry of infinite
trees and other non-compact manifold stratified spaces at infinity.
Specific problems that will be addressed include the Baum-Connes conjecture
for local similarity groupoids arising from the end spaces of trees,
periodic structure in the neighborhood of the singular set of a manifold
stratified space, the classification of stratified h-cobordisms, and
controlled topology over nonpositively curved manifolds. This last problem
is related to Novikov-like conjectures.

Topology seeks to classify, characterize, and explore those abstract spaces
known as manifolds. Manifolds are locally like ordinary euclidean spaces
(the line, the plane, three-dimensional space, etc.); however, they are
allowed to have global twisting, curving and holes (e.g., circles, spheres,
tori). Manifolds arise in many models of physical and biological phenomena.
Manifolds with singularities, or stratified spaces, are even more
ubiquitous as they appear as solution spaces of algebraic and differential
equations, and as limits and compactifications of manifolds. Mathematical
trees are the one-dimensional case of stratified spaces and are used to
model branching processes. There are many asymmetric infinite trees that
nevertheless have many similar infinite subtrees. One of the goals of this
project is to study these non-global symmetries of infinite trees using a
fairly new branch of mathematics called noncommutative geometry. More
generally, the symmetry and periodic structure of stratified spaces at
infinity will be investigated.